ARI-MA: Gamma-Ray Spectroscopy by Large Nanophotonic Scintillator Arrays

0736158
Kahn
Nuclear threat detection systems for monitoring radionuclides that emit energetic gamma rays within bulky shipments, must be sufficiently sensitive and stable to detect and identify specified amounts of radioactive material with few false positive or negative alerts. This project will design and test a gamma-ray spectrometer system that combines a large-volume scintillator of nanophosphors or light-emitting quantum-dots in solid suspension, an array of collection optics of and/or fiber-optic bundles, and photodiodes for converting the focused light to electron pulses. The scientific methodology and multi-group partnership involved in this project will greatly benefit from both the junior faculty members and students from the university groups.